Semiconductor spintronics devices and circuits

Proposal Number: ECCS-0824075
Proposal Title: Semiconductor spintronics devices and circuits
PI Name: Dery, Hanan
PI Institution: University of Rochester

Semiconductor spintronics devices and circuits

H. Dery, M. Huang, & R. Sobolewski

The objective of this research is to study properties of the electron’s quantum mechanical spin that can be used in the design of logic circuitry in the future. This study will explore innovative high-performance computer architectures that capitalize on the electrical and magnetic control of lateral spin-based devices. The approach is to design, fabricate, characterize, and model hybrid semiconductor/ferromagnet lateral devices that are based on spin-accumulation. The use of advanced, ultrafast magneto-optical spectroscopy techniques will be used to characterize the spin transport and to probe the physics in these devices.

Intellectual Merit
Virtually all of today's digital electronics use voltage levels to process data. This choice of information coding has provided tremendous scaling and growth in the semiconductor industry. Voltage, however, is not the only representation available. Commercial storage devices encode information using the electron's quantum mechanical spin. The proposed research studies the tradeoffs between advanced digital devices that rely on the charge of electrons and devices that rely on the quantum mechanical spin of electrons.

Broader impacts
The proposed program holds the potential to improve the architecture of high-performance computers. It may affect a variety of everyday applications by allowing lower power consumption and additional programmability of electronic circuits. The educational activities in this program involve (I) training of both undergraduate and graduate students, (II) encourage students from under-represented groups to join our team by using the on-going McNair program, and (III) the establishment of a new course about spin-based electronics.